RAPID Proposal: Establishing the STEM Corps Evaluation and Research Agenda

President Obama announced in April 2013 that the Corporation for National and Community Service (CNCS) would launch a STEM AmeriCorps initiative to build student interest in STEM. A RFA is currently being prepared to be released in the late fall of 2013. This project will engage in quick response research to identify an evaluation and research agenda that can begin to inform the program launch. Thus, the timeframe for informing the initial stages of STEM AmeriCorps is relatively short, and the creation of an evaluation and research agenda is very timely.

The products from the RAPID proposal are: (1) a review of the evaluation and research literature on the use of volunteers and/or mentors to build students' interest in STEM; (2) to convene a workshop to identify evaluation and research priorities to guide the initiative; and (3) a summary evaluation agenda that identifies promising directions along with the strength of evidence around key issues.